International Travel Award to attend the International Water Supply Association (IWSA) Regional Conference in Zurich, Switzerland

9411763 Deb This is an award to support travel by the applicant to attend the regional meeting of the European International Water Supply Association that will be held in Zurich, Switzerland from May 15- 20, 1994. The investigator will address a plenary session of the conference on "Water Distribution System Performance Indicators" following the Keynote Address. This conference will address technologies and methodologies for rehabilitation of water distribution systems, a matter of great concern with respect to the aging of U.S. municipal water distribution system components of the urban infrastructure. Results are expected to identify research needs associated with addressing the ability of these systems to provide adequate quantities of water, dependably and efficiently.